Neural Control of Balance Critical to the Emergence of Mature Locomotion

This three-year award supports U.S.-France cooperative research in neurobiology between Marjorie H. Woollacott of the University of Oregon and Christine Assainte at the Laboratory for Neurobiology and Movement, French National Center for Scientific Research, Marseilles, France. The investigators propose a study on the neural mechanisms underlying locomotion in children. In particular they will focus on the development of balance control mechanisms and its role in the emergence and refinement of independent walking abilities. The project takes advantage of separate techniques developed in the U.S. and French laboratories.